FASEB Conference: "Protein Folding and Assembly in the Cell" to be held July 22-27, 2000 at the Vermont Academy in Saxton River, Vermont

Agard
MCB-0070419

This conference "Protein Folding and Assembly in the Cell" is the sixth in a series of FASEB conferences, and aims to bring together cell biologists, geneticists, biophysicists and biochemists to look at protein folding and misfolding. Interdisciplinary approaches are important since biological constraints are critical in formulating theory and interpreting in vitro data. The setting of the conference at the Vermont Academy in Saxton River, permits informal discussion as well as formal presentations.